AI Institute: Artificial Intelligence for Environmental Sciences (AI2ES)

Changes in weather patterns, oceans, sea level, and disaster risk amplify the need for accelerated research in both AI and Environmental Science (ES). The AI Institute: Artificial Intelligence for Environmental Sciences (AI2ES) is a convergent, multi-sector institute that brings together researchers in AI, atmospheric science, ocean science, and risk communication to develop user-driven trustworthy AI that addresses the broad data and research needs of pressing environmental concerns. AI2ES leverages dedicated partnerships in academia, government, and private industry to multiply the strategic impact and societal benefit of the institute’s integrated research in trustworthy AI, ES, and risk communication. By directly engaging environmental scientists and risk managers, AI2ES aims to improve the Nation’s understanding of severe weather and ocean phenomena, save lives and property, and increase societal resilience to environmental change.

As a National AI Research Institute, AI2ES brings together AI researchers, environmental scientists, and risk communication researchers to work synergistically, contributing to fundamental scientific advances in AI, social science, and environmental science. Researchers at AI2ES are investigating novel trustworthy AI techniques including techniques for physically-constrained machine learning, model interpretation and visualization for spatiotemporal data, uncertainty quantification, and robustness with adversarial data. In environmental science, AI2ES is enhancing the understanding and prediction of high-impact atmospheric and ocean science phenomena at time scales ranging from hours to months. Integration of a solid theoretical framework for risk communication will ground AI2ES in expert and professional end users’ needs, while simultaneously improving the risk communication community’s understanding of how risk communication approaches influence experts’ trust in AI-based methods and their willingness to integrate them into their workflow. AI2ES further serves society through its education and workforce development activities. The institute supports workforce development through integrated activities that prepare students and professionals to apply AI to environmental challenges. These include AI certificate programs, internships, mentoring, and workforce retraining modules developed with industry and major research facilities. Together, these efforts provide hands-on experience with AI tools and help prepare a skilled workforce to address emerging needs in environmental prediction and decision support. AI2ES is providing both the research and the future workforce to deliver the advances needed for trustworthy prediction, understanding, and communication of the high-impact environmental hazards that are of concern to the entire country.